Conference: Joint Workshop on Secure and Trustworthy Cyberspace (NSF-CSA Singapore)

Cybersecurity challenges increasingly span national borders, and this project supports U.S.-based participants attending a Joint Workshop on Secure and Trustworthy Cyberspace with researchers from Singapore, facilitating and fostering collaborations between cybersecurity researchers from both countries. Funds cover travel and lodging costs for invited participants from U.S. institutions to attend the workshop in Singapore. The workshop offers a unique experience for cybersecurity researchers to engage with one another through an extensive program that allows the sharing of research ideas and the discussion of emerging topics. The project's novelties are its structured, in-person format, which turns brief introductions into working relationships, and its inclusion of researchers across different career stages, catalyzing vertical and horizontal collaborations. The project's broader significance and importance are rooted in its potential to catalyze lasting international partnerships, enhance cross-cultural research competencies, and seed collaborative innovations in cybersecurity, while strengthening the cybersecurity workforce in the United States.

The workshop centers on pressing research problems in cybersecurity, including trustworthy artificial intelligence, resilient autonomous systems, dependable future-generation wireless, cyber-physical systems, and other topics of shared interest. Through a combination of keynotes, lightning talks, expert panels, and roundtable discussions, the event cultivates dialogue among invited researchers from academia, government, and industry, identifies shared research interests, and supports the development of joint research collaborations. This workshop is expected to result in new research collaborations, influence future research directions, and contribute to the global effort to secure emerging technologies.